Doctoral Dissertation: An Analysis of Land Rights Reform in Sub-Saharan Africa

This doctoral dissertation research examines variations in land tenure systems in sub-Saharan Africa. The study focuses on land rights reforms in Mali and Niger in the period 1970-1997. It is hypothesized that the preferences of leaders to establish land rights declines when the revenue from resources exceeds a certain threshold; and that leaders have the greatest opportunities to realize profits in mineral-rich economies with poorly diversified productive sectors. These hypotheses are tested using computer simulations, archival research, interviews and statistical tests. This study contributes to the literature on property rights in anthropology, economics and political science and provides important insights for transition governments seeking to change their systems of property rights.